Automatic Machine Tool Path Generation

This research is focused on the automatic generation and verification of cutter paths for machining sculptured surfaces. The initial phases of the work will seek to generalize work done collaboratively with the Ford Motor Company on sculptured-surface cutter-path verification. The main problem here is detecting under- and over-cutting due to improper cutter selection; a z-buffer approach will be used, and algorithmic efficiency is a central concern. Later phases of the research will focus on efficient data structures for representing machined sculptured surfaces, and on alternative approaches to the automatic cutter-path generation problem.